Collaborative Research: Physical and Chemical Processes in Silicic Magma Chambers Invaded by Basalt

9526784 Krogstad The goal of this project is to understand how basaltic infusions into silicic magma chambers affect physical and chemical processes in those chambers and influence the subsequent evolution of the mafic and silicic magmas. The research will focus on two Silurian composite plutons (the Cadillac Mountain and Gouldsboro intrusions) in the coastal Maine magmatic province. This research will combine detailed field studies, petrography, and major-trace-element geochemistry of whole-rock samples with studies of the isotopic systematics of Sr and Nd both in whole rock and in feldspar crystals from a wide range of rocks. This research should contribute to our understanding of compositional stratification in composite magma chambers and the origin of magmatic enclaves, and will provide new insights into the possible origins of A-type granites and trondhjemites.